Support Services for the Arctic Natural Sciences Program in OPP (Task Order #115, CPO-9596088)

The Friday Systems Services (FSS) staff member will provide proposal processing services to the Arctic Natural Sciences Program in the Office of Polar Programs for approximately 100 proposals.